Mathematical Sciences: Copper Mountain Conference on Iterative Methods; April 2 - 5, l990, Copper Mt., Colorado

This award supports a conference on iterative methods for the solution of linear and nonlinear systems of equations. The conference will be held in Copper Mountain, Colorado at the Village Square Lodge from April 1 to April 5, 1990. The topics of emphasis are nonsymmetric linear systems, parallel implementations, and novel preconditioning techniques. The speakers include Olof Widlund, Michael Overton, Ahmed Sameh, Nick Trefethen, and Paul Saylor. Papers submitted at this conference will be refereed and published in the SIAM Journal of Scientific and Statistical Computing.